The World We Create: A Traveling Exhibit Project

9901973
MATTEI

The Louisville Science Center will develop "'The World We Create' -- a Traveling Exhibit." This project will develop two traveling version exhibitions (approximately 2,500 sq. ft. each) based on the programs of the highly successful permanent 12,500 sq. ft. exhibition "The World We Create," funded by NSF. One exhibit copy will travel nationally to small and medium-sized science centers throughout the United States over a three-year period, filling a need for quality traveling exhibits and reaching an audience of 300,000 to 500,000 people. The second exhibit copy will travel to rural areas of Kentucky to be hosted by schools, public libraries or community colleges, reaching an audience of 150,000 to 200,000 students and adults.